Nonlinear Problems From Combustion Theory and Biology

PI: Yuan Lou
DMS-9801609

The investigator plans to study three classes of problems:
first, the perturbed Gelfand problem and its related ones from
Combustion theory. The emphasis will be on the complete
description of the exact number solutions of these nonlinear
elliptic partial differential equations and the understanding
of more complex combustion models; second, the investigator
wants to pursue a better understanding of the classical
Lotka-Volterra models with diffusion. These models, though
deceptively simple-looking, involve tremendous mathematical
difficulty. The investigator has been trying to introduce
new ideas and develop new methods to solve some open problems in
this field; The third class of problem that the investigator
will study is the cross-diffusion system, which is a
strongly-coupled nonlinear parabolic system. The investigator,
in a series of joint work with Wei-Ming Ni, has introduced
powerful new methods that can yield very detailed information
about the steady-states of these systems. The investigator plans
to study the global time existence of this cross-diffusion
system, along with the stability of various steady-states.
The investigator hopes that the work on this cross-diffusion
system can be instrumental in understanding general strongly-coupled
reaction-diffusion systems.

Mathematical problems from biology and combustion theory are
not only mathematically challenging, but also practically important.
To be illustrative, let us consider the following ecological problem:
suppose that two different species originally live in two separate
regions and both of them can survive. Now if we connect these two
regions and let these two species be mixed together in the new region.
Besides the existing competitions among the same species, there appears
the new competition between two different species. A basic questions is:
how can these two species manage coexistence under such new situation? If
assuming that these two species are moving randomly, then the problem can
be modeled by the classical Lotka-Volterra model, and this model is
covered by the second class of problems which the investigator proposes
to study. On the other hand, when two species are competing for
resources to survive, it is not very reasonable to just add diffusion to
the model since individuals are not moving around randomly. Instead,
they are moving to places to their advantage, e.g., species prefer places
with less population pressures created by competitors. Based on this
second assumption, some biologists proposed the cross-diffusion system,
i.e., the third class of problems which the investigator will pursue. The
investigator hopes that such mathematical work not only yields interesting
mathematical results, but also strengthens the understanding of real
world phenomena in various branches of science.